Computing Innovations in the Social Sciences - Conference/ Workshop, October 1987, Ithaca, NY

This is a proposal for a conference of social scientists on the topic of computing innovations in the social sciences. The conference will be held for two and a half days in early October 1987 at Cornell University. It is organized and hosted by the Cornell Institute of Social and Economic Research (CISER), under the direction of Robert McGinnis, Professor of Sociology and Director of CISER. The conference will center on a) establishing local and regional communication networks for social science research; b)integrating superminicomputers into the networks; c) social science computation on supercomputers; d) innovations in statistical packages and graphics; e) data archiving, retrieval and network distribution. The profusion of new technologies and software places a premium on the continuous updating of computer skills. The conference will provide demonstrations of innovative hardware and software for use by social scientists and will promote technology transfer both among leading edge groups and from them to smaller academic research groups.